Modeling Mesoscale Convection by Coupled Nonlinear Systems

9523572 Gluhovsky The study of fundamental aspects of atmospheric systems is made difficult by the fact that these systems are nonlinear and sometimes chaotic in nature. Accordingly, numerical systems (known as low order models) that lend themselves to relatively simple mathematical solutions while still maintaining the fundamental characteristics of the atmospheric flows are valuable research tools for understanding the underlying physics. Preliminary studies by the Principal Investigators indicate that low order models of atmospheric phenomena may be presented in the form of mathematical systems known in classical mechanics as Volterra gyrostats. In this project, low order models for mesoscale cellular convection will be developed in the form of systems of coupled gyrostats. This will promote understanding of this complex phenomenon as well as the demonstrating the fundamental role that coupled gyrostats could play in the study of geophysical fluid dynamics. ***